Studies Towards New Seismic Design Approaches

Studies aimed at establishing new building design approaches which incorporate innovative concepts relating to force, deformation, energy, and economy will be conducted. This work will address important problems in the relationship between ground motion and system resistance in terms of the system's cyclic behavior and energy absorption, system modeling for both linear and nonlinear responses, and upgrading of design approaches.